1997 Aspen Winter Gravitational Waves and Their Detection Conference

This award will help support a conference on Gravitational Waves and Their Detection to be held as part of the Aspen Winter Elementary Particle Physics Conference, during January 26-February 1, 1997. The material to be discussed includes: -Interferometers and Bars -Space Based Detectors -Data Analysis -The LIGO Research Community